Leech Lake Tribal College NSFNet Access

Leech Lake Tribal College is located on an Anishinabe reservation and provides college courses to approximately 240 students. The College will use this grant to connect it's campus to the Internet. The students and faculty of the Leech Lake Tribal College need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.